University of Minnesota High School Summer Science Research Programs

9352946 Hooper The University of Minnesota seeks to initiate a six-week, commuter, Young Scholars program in Life Sciences for 42 students entering grades 11 and 12. The program offers students an experience in research that is unavailable to them in regular high school science classes. Students will participate in a Research Introductory Program (RIP) and engage in laboratory research activities under the guidance of faculty mentors and post-doctoral students at the University of Minnesota.